Conference on Network for involving Applied Sciences and Engineering in the K-12 System, to be held at Washington, DCon February and March, 1992

This mathematics and science education conference is designed to bring together representatives from a large number of professional societies and other organizations within the applied sciences and engineering, in order to share knowledge, report on activities, and reflect on recent experiences. Many of these professional organizations have already committed substantial resources to their K-12 projects and even produced materials, held curriculum workshops, and begun school and school system partnerships. This conference will begin the coordination among such efforts and should stimulate others to increase their involvement with precollege science education. The first conference will be held in February of 1992 and will be followed by a smaller conference in April of that same year. The April follow-up conference will involve representatives from twelve applied science and engineering societies to discuss plans for on going cooperation in the effort to improve mathematics, science, and engineering education at the precollege level.